SGER: Installation of Biochemical/Optical Sensors on Shelf-Basin Interactions (SBI) Moorings

This project will install a nitrate sensor and a set of optical sensors on two moorings that will be deployed along the Chukchi shelf during the Shelf-Basins Interactions (SBI) field program in 2002. The currently funded SBI mooring program does not include any biochemical or optical sensors in its instrumentation array and the SBI Scientific Steering Committee has strongly recommended that such types of sensors be added to provide a better understanding of the variability of physical and biological processes that influence the exchange of energy and material between the shelf and the deep basin. The SBI mooring PI's have agreed to accommodate these instruments on their array. This project will attempt to increase the operational time and capability of these instruments and will provide a record of a primary nutrient and the optical properties of the upper water column during the first year of the SBI field program.